CEDAR: A Study of the Low Latitude Ionosphere and the Equatorial Temperature and Wind Anomaly

The focus of this project is understanding the mechanisms causing the equatorial temperature and wind anomaly (ETWA) and its relationship to the structure of the low-latitude ionosphere. This study will require a thorough understanding of the characteristics of the low-latitude thermosphere-ionosphere system, including the complex interaction of its dynamics, temperature, composition, ionospheric density and electrodynamics. Resulting knowledge will lead to a definition of the electrodynamic forcing necessary to reproduce the extreme conditions during ETWA observations. Finally, the PI will determine if the E and F region wind and conductivity fields simulated by the model can generate realistic electric field signatures.